Scientific Outfitting, Third phase R/V Robert Gordon Sproul

This project will support improvements to the research vessel R. G. SPROUL, owned and operated by the Scripps Institution of Oceanography and dedicated to use in support of ocean science research. The Construction or Conversion activity of the Oceanographic Centers and Facilities Section provides funds for upgrading the capabilities of ocean science research vessels through support of ship construction or conversion. Support is provided for such things as new deckhouses, improved science laboratory spaces, equipment, the lengthening of ships and even new ship construction. The Project Director, Dr.George G. Shor, Associate Director, Scripps, is fully qualified to direct this project having had considerable experience in overseeing similar activities. This project will complete the installation of an array of boltdown fittings in the main deck, reconfigure a head/shower/washroom space for more privacy, and install an intake compartment for uncontaminated seawater experiments.